SSC: Engineering and Science Summer Program

The objective of this program is to demonstrate to African-American and Hispanic students in the Calumet region the real life relevance of and opportunities in engineering and science. This s a five-week summer program for students completing grades 6, 7, and 8 with follow-up activities in subsequent years. This is a cooperative effort between Purdue University-Calumet and Gary and East Chicago school systems. The key feature is the structure which ties math, science, and applications together; thus topics are chosen so that the participants see the importance of math as a basic tool, and its application to engineering and science. Hands- on laboratory and computer usage sessions and industrial tours are provided.